E-Portal to Information Technology Education and Careers: A Dissemination Focal Point @ NWCET for Students, Educators, Business, Policy Makers, and Government

E-Portal to Information Technology and Careers (E-Portal to IT) provides on-line dissemination of IT curricula and educational materials, best practices, career and certification information, and professional advancement opportunities. The portal, developed and maintained by the Northwest Center for Emerging Technologies (NWCET), aggregates content, brings together a community of interest in IT education solutions and provides them with adaptive e-tools necessary to efficiently reach and organize information. The Business Connector increases and enhances connections to practices and models for working with community colleges and other educators to develop IT educational programs. Also posted are internship and employment opportunities. The Development Finder provides educators and business-education partnerships links to smart IT Skill standards, online access to curricula and courseware based on the standards, professional development opportunities, implementation guides and resources developed by NWCET and other ATE projects. The IT Program Finder and Skills Locator links jobs to required skills, educational programs and certification in ways meaningful to students and re-careering adults. The portal expands linkages with professional organizations and business and industry leaders to ensure ATE presence in policy making and implementation.